A Proposal to Develop an Undergraduate Laboratory in Semiconductor Device Physics

An electronic device laboratory to teach physics and practical operation of semiconductor electronic devices is being developed as part of a electronic device course. This undergraduate teaching laboratory demonstrates some of the "difficult to grasp", but "easy to see" notions in semiconductor device physics. Starting with experiments to illustrate the concepts of energy band gap and positively charged quasi-particles in semiconductors, students progress to examine optical processes and electrical conduction in a variety of important electronic devices. These experiments each are performed in thirty minutes and incorporate state of the art virtual instrumentation techniques to reduce the time needed for data acquisition so that the students will have enough time to carefully perform the experiment and understand the fundamentals behind the phenomena that they are examining; a balance is maintained, however, between the ease of use and pedagogical considerations.